CAREER: Solid State Solvation in Doped & Nanostructured Organic Thin Films: A Novel Method for Tailoring Energy Level Structure of Organic Materials in Active Optoelect. Devices

Professor Vladimir Bulovic recently demonstrated a new general method for tuning the
energy level structure of organic materials by adjusting the strength of the local electric
field inside the organic films with intermolecular dipole-dipole interactions. His group
will now apply this "solid state solvation" (SSS) effect to demonstrate practical, efficient
organic optoelectonic devices such as organic LEDs, lasers, and solar cells, and develop a
theoretical understanding of this phenomenon. The SSS effect is present in every
molecular organic solid, but is most clearly observed in strongly polar materials and
composites. It originates from dipole-dipole interactions between neighboring molecules
that generate strong local electric fields, stretching the intramolecular bond lengths and
deforming charge distributions on molecules. This physical change in the molecular
structure is manifested in the modified energy level structure for the molecule, which we
can utilize to optimize performance of organic optoelectronic devices.

Prof. Bulovic previously demonstrated that local electric fields generated in dipole-dipole
interactions between polar organic molecules in a solid thin film can result in a shift of
molecular energy levels by more than 0.25 eV, tuning the luminescence of the same
molecular species from yellow to orange to red. In this program his group will extend the
initial studies and utilize dipole-dipole interactions to tune the carrier injection properties
at organic heterojunction interfaces, modify exciton energy transfer rates from the host to
the dopant in mixed organic layers, and access triplet energy levels in efficient
phosphorescent organic materials. These effects will be optimized to improve
luminescence efficiencies of organic LEDs, lower lasing thresholds of organic lasers, and
increase photogeneration efficiency of organic solar cells. The theoretical framework
quantifying intermolecular interactions in molecular organic thin films is not presently
known and will be developed within this program.

Findings discovered in the course of this program are fundamental in nature and will have
a strong impact on practical applications of molecular organic solids in optoelectronic
devices. They will enhance the understanding and the applicability of the vast field of
molecular organic materials, influencing treatment of organic thin films, heterojunctions,
multilayers, quantum wells, and nano-patterned organic materials. These findings will be
incorporated in the graduate "Seminar on Organic Optoelectronics" that Prof. Vulovic is
presently preparing for the MIT graduate curriculum.